Support for a GSA Penrose Conference 'Terrane Accretion Along the Western Cordilleran Margin: Constraints on Timing and Displacement' in June 1999

9817962
Mahoney

This action provides partial conference support for a Penrose Conference entitled, Terrane Accretion along the Western Cordilleran Margin: Constraints on Timing and Displacement," to be held 18-25 June, 1999, in Winthrop, Washington. Results are expected to sharpen focus of research plans on this important subject.